CAREER: Near- and Far-Infrared Background Light and the Astrophysical and Cosmological Implications

CAREER: Near- and Far-Infrared Background Light and the Astrophysical
and Cosmological Implications

Abstract

AST-0645427

PI: Asantha Cooray

Dr. Cooray will carry out a comprehensive research program to
characterize the underlying astrophysical and cosmological information
contained in the infrared background (IRB) spatial anisotropies at
near- and far-IR wavelengths. In the near-IR regime, signatures of
primordial galaxies in the background spatial fluctuations will be
studied. At far-IR wavelengths, clustering information of dusty,
star-forming galaxies will be measured. The main goal of this research
program is to expand the science case for anisotropy measurements of
IRB and to provide a strong theoretical background to interpret these
measurements just as the case has been with respect to CMB anisotropy
experiments.

As a part of this research project, Dr. Cooray plans to provide
training and research experiences for students, with an emphasis on
creating opportunities for undergraduate students. This includes
direct involvement in international collaborations such as Akari,
based in Japan, and Herschel SPIRE, based mostly in the UK. Students
will attend collaboration meetings in these countries and will be
trained to work with and learn from foreign partners. The PI plans
to integrate elements of this research program and other topics in
cosmology into a Computational Physics course Dr. Cooray teaches at UC
Irvine where the students are recruited for the research program.
Over the next three years, Dr. Cooray will also develop a completely
new course on how to do "Order of Magnitude Physics" targeting juniors
and will also make available the course material publicly from a
website. Dr. Cooray will also update an existing Voyager-era "Space
Science" course, in the introductory astronomy sequence targeting
non-science majors, to a course on "Space Astronomy" as a way to bring
new astronomical missions and their results to the classroom.

This award is funded by the NSF Division of Astronomical Sciences